Acquisition of Equipment for Measuring Magnetic Properties of Rocks

0213441
Herrero-Bervera

Funding from this grant supports the acquisition of equipment to measure fundamental magnetic properties of rocks. Specifically, a Variable Field Translation Balance will be purchased to allow for the determination of magnetic grain sizes and thermal parameters (Curie points) to help screen desirable and undesirable magnetic materials in paleomagnetic projects conducted at the University of Hawaii, Paleomagnetics and Petrofabrics laboratory. Research that will benefit from the new instrument centers on high-resolution examination of records of the earth's magnetic field behavior including records of secular variation, polarity transitions and intensity variations.